GONG 2002 and SOHO 12 Workshop at Big Bear Solar Observatory; Big Bear Lake, California; October 27-31, 2002

The 2002 GONG Meeting and the 12th SOHO Workshop will be held jointly, October 27-31, 2002, at Big Bear Lake, California. This workshop will focus on the study of the interior of the sun from a seismic perspective and also the prospects for similar study of other solar-like stars. It will also provide an unique opportunity to invite the scientific community to pause and reflect on the status of this fertile field of study, just past the first solar maximum since the deployment of the GONG network and the successful operation of SOHO. Significant time will be devoted to working group sessions, where outstanding, unresolved or controversial issues will be discussed.